Algorithmic and Combinatorial Advances in VLSI Design Theory

In the design and manufacturing of VLSI systems, practical problems are often characterized by fixed parameter instances. For example, such a parameter may represent the number of tracks permitted on a chip or the load capacity of a communications link. By fixing such parameters, attention can be focused on the physically realizable nature of the system rather than abstract aspects. Research is concentrated on fixed-parameter algorithmic and combinatorial problems of IC design. Powerful and, in some cases, emergent techniques from the fields of complexity theory, graph theory, well-partial-order theory, and algebraic coding theory are being used in considering such pragmatic issues as circuit layout, arrangement, embedding, and routing. A second thrust is the general problem of organizing and utilizing large collections of processors working in concert. Thus problems of system organization, utilization, mapping, and emulation are being addressed. The proposed research is on IC design theory, and is important to our understanding of the IC design process and methodology. The Principal Investigators are recognized as expert researchers in this area, have a history of novel ideas, and the potential to continue producing good research. They have done outstanding research during the first two years of the grant. This has resulted in fifteen papers published in the archival literature (refereed journals), ten being refereed, and many in conference proceedings and books. RESULT FROM PRIOR NSF SUPPORT Reviewers were uniformly very positive about the results from prior NSF support. They said the research results were of quality and had already made an impact on the IC theory community. It is clear that the prior support permitted development of the ideas leading to this proposal.